Workshop on Formal Foundations of Software Systems: Rio de Janeiro, Brazil, May 5-9, 1997

9617781 Jullig An international workshop on Constructive Programming will be held in Rio de Janeiro, Brazil to explore future directions in formal methods, programming logics, and programming languages. The workshop will take place November 4 to 8, 1996 and will combine 3 days of technical exchange with 2 days of discussions to produce recommendations to the science funding agencies of the U.S. and Brazil: NSF, CNPq, and FINEP. In recent years Brazilian researchers have made significant contributions in constructive programming and related areas, establishing a number of contacts with U.S. researchers. This workshop will promote further collaborations and provide information and recommendations for future research efforts and funding initiatives. ***